Functoriality and L-functions

The investigator is carrying out a program in the theory of automorphic
representations. The program is to find different methods to produce
automorphic funtoriality and then relate such methods. The point of finding such
connections is to determine automorphic-type formulae( such as periods or theta
integrals) for special values of automorphic L functions. Specifically the
techniques of the regular trace formula (as well as the relative trace formula)
and the use of the converse theorem produce examples of such functorial lifting.
The investigator relates these techniques to theta correspondence and the
descent method. Such new techniques make it possible to determine the
nonvanishing of the new liftings in terms of special values.

The motivation of the above work is to have an analytic formalism to study
the special values of certain automorphic L functions. It turns out that some of
the most famous problems in number theory (such as Fermat' s last theorem and
more generally the determination of integral solutions to polynomial identities)
have as a goal the concrete analysis of such L functions as above. The
information given by the investigator's approach may be useful in the qualitative
study of these L functions.